Techniques for Testing Database Applications

Frankl, Phyllis G.
Polytechnic University, Brooklyn, NY

Techniques for Testing Database Applications

Databases play in important role in almost every modern
organization. Although considerable research effort has been devoted
to assuring correctness and efficiency of database management
systems, little attention has been paid to assuring the correctness
of the application programs that run on these systems. Failure of
database application programs can have severe economic impact, so
development of techniques for testing them is of obvious importance.
This research project involves development of software testing
techniques targeted specifically to database application programs. It
includes development of techniques for generating database states
that are useful for testing the given application and techniques for
checking the database state after running a test. The techniques
studied are partially automated, relying on the user to supply some
information and deriving other information automatically. They use
the integrity constraints described in the database schema as a
source of information to aid in test generation and checking. A
prototype testing tool is being developed. Preliminary evaluations
of the effectiveness and usability of the techniques will be
performed with the aid of the tool prototype.